SGER: Volatiles Emitted by Vulcan and Tavurvur Volcano Eruptions in Rabaul Caldera, Papua New Guinea

9510188 Williams This SGER award will support research on the recent eruptive activities of Rabaul Caldera of Papua New Guinea. The goals are to collect real-time data on SO2 emissions and obtain samples of the eruptive products for studies of volatiles contained in the magma body. The need to understand large-scale 9510188caldera forming eruptions and, specifically, the premonitory activity is very fundamental. The gases are not preserved as a rock record and, therefore, one must make the analysis in real-time. Volcanic gas flux is very important in understanding the causes of global change, and there are major uncertainties about the flux of different gases released by caldera-forming eruptions.